CAREER: Dynamic Optimal Control of Groundwater Remediation

9501906 Culver This is an award to provide the support this investigator requested in response to NSF 94-101, the National Science Foundation Faculty Early Career Development (CAREER) Program which has the intent of encouraging the early development of academic faculty as educators and researchers. The research this investigator plans to conduct is directed toward establishing an efficient optimal design algorithm for decontamination of water in aquifers that have been contaminated with hazardous materials. The investigator's education plan involves development of effective skills for teaching engineering courses and to use those skills to enrich courses she will be responsible for teaching. Her goal is to bring students to a level of understanding that allows them to analyze problems relating to decontamination of aquifers and to design appropriative engineering solutions to those problems. Results of this investigator's research are likely to improve the approaches taken toward engineering design of procedures for decontaminating groundwater. Her teaching plan is expected to result in increased participation in engineering by women and under-represented minorities. ***